Conference: 2026 International Mammalian Synthetic Biology Workshop (mSBW)

This award will provide partial support for the 2026 International Mammalian Synthetic Biology Workshop (mSBW). The workshop will be held on August 6-7, 2026 in Atlanta, Georgia. The meeting will advance research in synthetic biology and biomanufacturing. mSBW will be an interactive workshop that engages scientists and engineers across all career stages. It will provide professional development activities for early career researchers. Workshop outcomes will be shared via public reports that identify critical research opportunities.

The mSBW will focus on emerging trends in synthetic biology and artificial intelligence applications in mammalian cell bioprocessing. International and industry presenters will provide perspective to broaden the discussion. Session topic will range from Molecular Engineering to Cell and Gene Therapeutics and Biomanufacturing. These sessions will discuss opportunities to turn living cells into controllable platforms for understanding biology. In addition, the meeting will focus on synthetic biology in building therapies, diagnostics, and tissues. mSBW will generate a roadmap for advancing mammalian synthetic biology and strengthening U.S. leadership in this important area.